Experimental Studies of High Energy Interactions

This award covers experimental Elementary Particle Physics Research by a group at Rutgers University in collaboration with other NSF and DOE supported scientists. The group will continue studying polarized e+e- interactions at the Stanford Linear Collider (SLC). They will also finish the analysis of neutrino-neon interaction data taken at Fermilab, study the design of detectors for the proposed Tau- Charm factory in Seville, Spain, and also study the use of diamond films for use in high energy particle calorimetry at the Superconducting Super Collider (SSC).